NSF Young Investigator

9458053 Mueller Solid-state materials including zeolites, aluminophosphates, minerals, ceramic precursors, and inorganic oxide glasses will be studied with techniques of high-resolution NMR spectroscopy. Magic-angle spinning and more complicated quadrupolar averaging techniques will be coupled with homonuclear and heteronuclear correlation spectroscopy to determine microstructural connectivities, bond distances, and local topology. %%% ***